An EPR Spectrometer for Curricular Improvement

The undergraduate chemistry and physics curricula will be enhanced by incorporating an electron paramagnetic resonance (EPR) spectrometer. The range of applications of EPR has widened significantly because of developments in instrumentation. We will carry out new and existing experiments in the areas of biochemistry, organic chemistry, physical chemistry, and inorganic chemistry, as well as analytical chemistry and materials science. The instrument will broaden our laboratory program for upper-level courses in chemistry and physics and will also have a significant impact on undergraduate research. In addition to research projects for seniors receiving honors degrees, smaller projects have been designed for less sophisticated students, including non- science majors.